International Conference on Raman Spectroscopy - Calcutta, India, November 1988, Group Travel Award in Indian and U.S. Currencies

Description: This project supports travel by 15 U.S. scientists to the International Conference on Raman Spectroscopy to be held in Calcutta, India, Nov. 1988. The conference is planned to commemorate the 100th birthday of C.V. Raman and the 60th anniversary of the discovery of the Raman Effect. The U.S. participants comprise chemists and physicists. Their work covers the range of Raman Spectroscopy from small molecules in the gas phase to nucleic acids. Most of them are well known scientists, but some are younger scientists doing exceptional work in their fields. Each has provided a title for the topic to be presented at the conference. Participants from India and from other countries are expected to be similarly well selected. The Indian organizer is Dr. C.N.R. Rao, Director of the Indian Institute of Science, Bangalore, India, aided by some of that country's most eminent scientists. It is expected that the proceedings of this major conference will be published for permanent reference. Scope: The U.S. and India have a significant number of well known scientists who have worked, and continue to do research, utilizing this field of investigation, first identified by Raman. They work in materials, biology, physics, chemistry and other fields. The meeting is very likely to result in considerable exchanges of information and possibly lead to future research collaboration in these areas.